Conference on Mechanics and Biophysics of Hearing, June 25-29, 1990, Madison, Wisconsin

Hearing in mammals involves a remarkable structure called the cochlea. This tiny coiled organ of the inner ear contains membranes and fluids in chambered partitions, with a highly organized array of sensory receptor cells that excite fibers in the auditory nerve to the brain. Motion of the eardrum is produced by sound pressure waves, and these small motions are transmitted to fluids of the inner ear, driving microscopic movements of the membranes, and stimulating the sensory cells. New tools of anatomy, physiology, physics, and mathematical modelling have allowed examination of the dynamics and "micromechanics" of the inner ear, and increased our understanding of the structure and function of this important organ. This conference will bring experimental work together with theoretical work to promote interaction and full discussion of cochlear mechanisms. This multidisciplinary, but sharply focussed approach has led to past conferences of substantial impact. The immediate publication of the proceedings will insure that the impact is broad as well as deep. Understanding the peripheral mechanisms of hearing will help considerably in our understanding of how the brain processes auditory information, and is likely in the long term to lead to applied advances in fields such as audio recording, noise suppression, hearing aids, speech analysis, and aspects of signal detection.